Mathematical Sciences: Smooth 4-Manifolds

9704927 Fintushel This project will explore the relationship between the classification of smooth simply connected 4-manifolds and invariants of knot theory, by constructing families of 4-manifolds that are distinguished by knot theoretic invariants. Already the investigator, jointly with R. Stern, has accomplished this for the Alexander polynomial. Any symmetric Laurent polynomial P(t) with absolute value of P(1)=1 occurs as the Alexander polynomial of some knot in the 3-sphere. For example, R. Stern and the principal investigator have constructed a family of distinct 4-manifolds, each homeomorphic to the K3-surface, constructed from knots, and distinguished by the fact that their Seiberg-Witten invariants are the Alexander polynomials of the knots. There are other knot invariants that should correspond to other constructions. A related issue is the geography problem for simply connected irreducible 4-manifolds. Each such manifold can be assigned a lattice point in the plane corresponding to its characteristic numbers. The problem is to study which points are realized. There has been notable progress, but much work still remains, and the principal investigator plans to seek new methods for constructing irreducible simply connected 4-manifolds of positive signature. He and R. Stern also conjecture a replacement for the Noether inequality for certain symplectic 4-manifolds that generalize the notion of `general type'. The investigator has a promising technique for its proof, which he plans to pursue. The theory of smooth 4-manifolds gains its importance both from its central location between low and high-dimensional topology, and from its close interaction with high energy physics. The major problem in this field is the classification of smooth simply connected 4-manifolds. The interaction between topology and physics has stimulated the construction of invariants - at first Donaldson's invariant, and then the invariant of Seiberg and Witten - tha t are useful in distinguishing the (diffeomorphism) types of 4-manifolds. These have led to major advances in the classification problem. Specifically, researchers who have constructed possibly new families of 4-manifolds can use these invariants to confirm that their phenomena are indeed `new'. Recent years have given rise to simply connected (irreducible) smooth 4-manifolds that admit no complex structure (even up to homotopy), then to those that admit no symplectic structure. These examples have confused the issue of classification to the point that we are left without even a conjectural classification, but they have also invigorated the theory and reinforced its richness. ***